Radiation-Induced Reactions in Polymer Films

The objective of this three-year U.S.-Yugoslav cooperative research project in polymer chemistry between B. Milosavljevic of the Boris Kidrich Institute for Nuclear Science and J. Kerry Thomas of the University of Notre Dame is to investigate the effects of high energy radiation on polymer materials. The researchers propose to develop a theory on the nature of the products formed by high energy radiation. The high energy radiation work will be carried out at the Boris Kidrich Institute and polymer characterization will be handled by the University of Notre Dame on their pulsed laser facility. The results of this research on the use of radiation to create miniature circuits on polymer materials will have an important impact in the microelectronics area. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution.